Singular Integrals, Smoothness Spaces, and Optimal Estimates for Elliptic and Parabolic Boundary Value Problems

DMS 0400639

M Mitrea

University of Missouri

Singular Integrals, Smoothness Spaces and Optimal Estimates
for Elliptic and Parabolic Boundary Value Problems

ABSTRACT

Recent developments in harmonic analysis have facilitated a deeper
understanding of large classes of partial differential equations,
modeling a variety of physical problems, including those arising in
elasticity, hydrodynamics and electromagnetism. This proposal is
concerned with regularity aspects of solutions to these equations.
Most notably, the PI intends to develop new tools, as well as broaden the scope of more traditional methods, in order to be able to study how the smoothness of the data influences the smoothness of the solution, in the presence of boundary
irregularities. The natural borderline is the case when the domains in
question are Lipschitz, i.e., satisfy a uniform (interior/exterior) cone
condition. Informally speaking, Lipschitz domains make up the most general
class where a rich function theory can be developed, comparable in power
and scope with that associated with the upper-half space.

The scales of Besov and Triebel-Lizorkin spaces offer a natural functional
framework within which the issue of smoothness can be analyzed. They
encompass both the Sobolev and Hardy classes and, otherwise, exhibit
features which are generally harder to take advantage of (or are even
completely lost) when working on the more classical Lebesgue scale.
One of the main questions addressed in this proposal is the regularity
of Green potentials on Lipschitz domains (with Dirichlet and Neumann
boundary conditions) on Besov and Triebel-Lizorkin spaces. The PI proposes
to investigate this issue both in the elliptic and parabolic setting, via
singular integral methods.